Diagnostics for Extreme-LIGHT

This award supports a multi-institutional, coordinated program to develop cross-facility diagnostics and advanced modeling capabilities for the multi-petawatt era of high-intensity laser science. By maturing a portable, facility-ready suite of diagnostics and modeling tools, the project ensures that flagship experiments at current and planned national high power laser facilities, including the NSF ZEUS User Facility and a potential future NSF OPAL User Facility, can deliver reliable and quantitative results. In particular, the diagnostics and modeling suite will include artificial intelligence-based feedback control for high power laser pulse optimization and will enable exploration of new strong-field quantum electrodynamics regimes crucial for testing the fundamental physics underpinning quantum information systems. The project will train a globally competitive STEM workforce with paid research experiences for undergraduate and graduate students across six institution to expand the talent pipeline for national security, scientific discovery, and high-tech industries.

The scientific effort is organized into six coupled thrusts: focal-spot and intensity metrology using electron wavefront sensing with artificial intelligence-based feedback to deformable mirrors, pre-pulse and plasma-mirror control, virtual diagnostics within the OSIRIS particle-in-cell framework, diagnostics for 10–200 GeV electrons, high-repetition-rate electronic proton radiography, and broadband X-ray imaging for high-energy-density science. These thrusts are deployed in a coordinated cross-facility program to establish experimental readiness for flagship campaigns in strong-field quantum electrodynamics (SF-QED), dephasingless laser-plasma acceleration, and ultrafast laboratory astrophysics. By linking laser parameters and target conditions to multi-messenger observables, the project establishes a coherent framework for interpreting experiments in previously inaccessible regimes of relativistic plasma physics and warm dense matter.